Presidential Young Investigator Award

This is a Presidential Young Investigator Award. The research objective is to develop a program to integrate large-scale and centrifuge data with numerical data in order to expand the usefulness of these test methods for geotechnical engineering. Centrifuge tests will be conducted to model problems being addressed by on going large-scale tests and finte element analyses at Virginia Polytechnic Institute and State University.